FASEB Summer Conference on Phospholipases to be held July 22-27, 1995 at Saxtons River, VT

; R o o t E n t r y F x C o m p O b j b W o r d D o c u m e n t O b j e c t P o o l ' ! " # $ % & ( ) * + , - . / 0 1 2 3 4 5 6 7 8 9 : ; < = > ? @ A B C D E F G H I F Microsoft Word 6.0 Document MSWordDoc Word.Document.6 ; e = e ) ) n n n n n n n @ 1 " q T ; @ n @ n n n n n n n n 6 9424527 Roberts The FASEB Summer Research Conference, Phospholipases will be held July 22-27, 1995 in Saxtons River, Vermont. The study of lipids and signaling events has been an exciting area of research in recent years. The phospholipase field is changing rapidly as structural information becomes available for many of the prototypical phospholipases. The field is at a confluence of cell biology, biochemistry, and biophysics. This is the only meeting that encompasses all aspects of the biology of phospholipases. %%% Phospholipases are enzymes that play key roles in many cellular processes. The field encompasses cell biology, biochemistry and biophysics. This meeting will bring together researchers from these fields, and should be of benefit to progress in the study of phospholipases. *** Oh +' 0 $ H l D h R:\WWUSER\TEMPLATE\NORMAL.DOT Roberts marcia s S u m m a r y I n f o r m a t i o n ( teinberg marcia steinberg @ 9 \ @ @ @ G Microsoft Word 6.0 2 ; ) % ) ! ! ! ! ! ! K @ Normal a b c " A@ " Default Paragraph Font ) ) ) ) 6 marcia steinberg"\\CLM11\MCBPUB\BIOCHEM\ROBERTS.ABS @HP DeskJet 500 LPT1: HPDSKJET HP DeskJet 500 D L f , , ! /' ^ }w;/' } d g 2 HP DeskJet 500 D L f , , ! /' ^ }w;/' } d g 2 ( ( ( $ 1 Times New Roman Symbol & Arial " h c eQ\ $#; Roberts marcia steinberg marcia steinberg ;